Conference: Nonlinear Partial Differential Equations and Stochastic Methods Workshop

This award supports participation of US-based researchers in the international workshop on Nonlinear Partial Differential Equations and Stochastic Methods held June 9-12, 2026 at the University of Jyväskylä, Finland. Partial differential equations (PDE) and stochastic analysis, including stochastic games, are the foundational mathematical pillars for artificial intelligence and machine learning. This project contributes to the education of the next generation of US-based research mathematicians in the theory and applications of nonlinear PDE, including regularity, homogenization, and data science. In addition to the research presentations, there will be several background lectures aimed at graduate students and other early-career researchers. The award will help cover the travel expenses of graduate students and postdoctoral researchers from institutions in the United States. The local expenses of US-based participants supported by this project are covered by the local organizers at the University of Jyväskylä.

The themes of the workshop are nonlinear elliptic and parabolic equations, homogenization, stochastic games methods in PDE, as well as applications to data analysis and machine learning. For example, semi-supervised learning can be articulated and analyzed with the help of discrete PDE on graphs. In addition, the theoretical underpinnings of data science and machine learning are becoming increasingly relevant, as these are foundational pillars for artificial intelligence applications and machine learning. Information about the workshop is available at https://www.jyu.fi/en/events/workshop-on-nonlinear-pdes-and-stochastic-methods.